Relaxation of Spin-Labeled Iron Porphyrins

This Research Opportunities for Women Career Advancement Award project is in the general area of inorganic, bioinorganic, and organometallic chemistry. During the twelve month period beginning 1 September 1989, Dr. Rakowsky will expand her background in inorganic and organometallic chemistry to include capabilities in Fourier transform nuclear magnetic resonance (FTNMR) and pulsed electron paramagnetic resonance (EPR) techniques. Specifically, Dr. Rakowsky will collaborate with Professor Gareth Eaton of the University of Denver and Professor Sandra Eaton of the University of Colorado at Denver on the study of the interaction of paramagnetic metal centers with nitroxyl moieties in spin-labeled iron porphyrins. FTNMR and pulsed EPR techniques will be used to delineate fundamental aspects of long range intramolecular electron exchange interactions. This Career Advancement Award will facilitate Dr. Rakowsky's move into physical bioinorganic chemistry and should advance significantly the development of her independent research career.